The Dynamics and Morphology of Magnetized Highly Collimated Outflows

AST-9802955 Hardee Dr. Hardee will carry out a study of the dynamics and emission from the highly collimated jet outflows observed in a variety of astrophysical environments, including extragalactic radio sources, quasars, and galactic superluminals. The research combines a variety of approaches : analytical analysis of the magnetohydrodynamic fluid equations to establish model dependence on parameters, numerical simulation to study non-linear processes and test the applicability of the analytical theory, and modeling of the dynamics and the emission from the jets and comparison to observations of individual objects. ***